High Speed Digital Video Camera for Investigations of Fluid / Plasma Dynamic Instabilities

An imaging system is assembled based on a very fast (18,000-40,000 frames per second) video camera and an arc lamp producing a large-area, collimated, high-intensity beam. The equipment will be used in studies of arc-anode attachment instabilities, the mechanism of droplet formation in wire arc spraying, a reacting countercurrent shear layer in a combustor configuration, and cathode erosion mechanisms for very-high-current plasma torches.